RI: Leveraging Interpretability to Ensure Factual Reliability of Language Models

Everyday Americans often turn to chatbots powered by large language models (LLMs) to answer questions related to their work, health, major life decisions, or other interests. However, these chatbots can be unreliable as sources of information. They are known to “hallucinate” answers, or in other words, confidently assert claims that are not justified. These issues degrade trust in LLM chatbots and can lead to an array of harmful consequences. This project will develop new techniques to ensure that LLM chatbots produce factually reliable responses to user questions. These techniques can be used to alter the model’s response as it is being generated, stopping hallucinations in real time. Companies that provide LLM-based services will be able to use these techniques to make their LLM-generated responses more trustworthy, which in turn will benefit the users of these services.

To achieve this goal, this project will leverage insights into how LLMs operate internally. Understanding the internal operations of models will enable this project to target the root causes of hallucinations and efficiently intervene to avoid them. This project will proceed in three thrusts. The first thrust will focus on ensuring that LLMs are faithful to context documents when provided, such as when a user uploads a document for the LLM to summarize, or when documents are retrieved based on the user’s question. This thrust will develop techniques that modify the contributions of different attention heads, as these are the components of LLMs that modulate access to contextual information. The second thrust will focus on analyzing when LLM outputs are justified by the model’s own internal knowledge. This thrust will leverage methods to localize an LLM’s knowledge to a small subset of neurons. The third and final thrust will integrate these two previous thrusts to handle questions that require a mix of contextual information and internal model knowledge.